Nanoparticle transfer to oocytes-- Travel request to the 2012 CBET Grantee Conference, June 6-8, 2012, Baltimore, MD

This award is for travel to and participation in the CBET grantees' meeting. The PI will present a poster updating current work.